Dynamic Aspects Of Semantic And Object-Oriented Databases

In recent years, the need for developing techniques and methodologies for the design, representation and manipulation of transactions or behaviors has become clear. This research focuses on the study and development of theoretical foundations for object-based database manipulation languages. Several fundamental problems concerning dynamic constraints and update transactions in the context of semantic and object-based models are investigated. One aspect is the formal analysis of object behaviors under a behavior modeling construct used to compose andstructure transactions in projects TAXIS, INSYDE, DAIDA, etc. The initial study is based on a simple object-oriented data model including class hierarchies, attributes ranging over printable values, and methods. Another topic is the study of behavior modeling primitives as new kinds of dynamic constraint and also compare them with other kinds of dynamic constraint. More general database models (e.g., to allow attributes ranging over classes) are also considered. The investigations into these problems yield a better understanding of these modeling constructs and insights into the impact of Object Identifiers on database manipulation languages.